Robust Active Vision Systems

The topic of the project is development of a framework for robust active vision, with the goal of obtaining systems capable of performing satisfactorily in the presence of uncertainty, such as due to poor calibration, noise, or a changing environment. The work will be complemented by a comprehensive experimental validation and performance characterization.